Clarke Atlanta University - Research Careers in Geosciences for Minority Scholars (Environmental Science)

Clark Atlanta University in cooperation with Dolphus E. Milligan Science Research Institute in the Atlanta University Center will establish a Research Careers in Geosciences for Minority Scholars Program to increase the number of minority students earning B.S. degrees in the natural sciences, computer science, and mathematics with the prerequisites and interest in pursuing Ph.D. degrees in the geosciences. The program includes the following activities: (1) a pre-college summer program that emphasizes areas in geosciences, (2) four-year scholarships for six entering freshmen each year of the program, (3) an enriched curriculum and research component for undergraduate participants, (4) articulation agreements with research universities and laboratories, and (5) cooperative arrangements with the Atlanta Comprehensive Regional Center for Minorities. Specific intended outcomes for the program include the following: (1) the development of an early identification and nurturing mechanism for talented Black students, (2) the creation of an awareness for careers in the geosciences among Black pre-college and undergraduate students, (3) the production of a competitive student training program in the geosciences, (4) the production of B.S. degree recipients interested in and capable of pursuing the Ph.D. degree in the geosciences, and (5) to insure that 75 percent of the undergraduate program participants will enroll in Ph.D. programs in the geosciences.